XPS: FULL: CCA: Collaborative Research: Automatically Scalable Computation

The era of performance scaling by increasing the performance of
individual processors is over, having been replaced by the era of
massive parallelism via multiple cores. Amdahl's law tells us that
our ability to parallelize computation is limited by the inherently
sequential portion of a computation. This unfortunate combination
of facts paints a bleak picture for the future of scalable software.
This work explores a radical new approach to parallelism with the
potential to bypass Amdahl's Law. The approach used involves making
informed predictions about computation likely to happen in the
future, proactively executing likely computations in parallel with
the actual computation, and then "jumping forward in time" if the
actual execution stumbles upon any of the predicted computations
that have already been completed. This research touches many areas
within Computer Science, i.e., architecture, compilers, machine learning,
systems, and theory. Additionally, exploiting massively parallel
computation will produce immediate returns in multiple scientific
fields that rely on computation. The research here provides an
approach to speedup on such real-world problems.

The approach used in this research views computational execution
as moving a system through the enormously high dimensional space
represented by its registers and memory of a conventional single-threaded
processor. It uses machine learning algorithms to observe execution
patterns to make predictions about likely future states of the
computation. Based on these predictions, the system launches
potentially large numbers of speculative threads to execute from
these likely computations, while the actual computation proceeds
serially. At strategically chosen points, the main computation
queries the speculative executions to determine if any of the
completed computation is useful; if it is, the main thread uses the
speculative computation to immediately begin execution where the
speculative computation left off, achieving a speed-up over the
serial execution. This approach has the potential to be infinitely
scalable: the more cores, memory, and communication bandwidth
available, the greater the potential for performance improvement.
The approach also scales across programs -- if the program running
today happens upon a state encountered by a program running yesterday,
the program can reuse yesterday's computation.